Planning Grant for an Industry/University Cooperative Research Center for Water Quality

UNIVERSITY OF ARIZONA PEPPER EEC-9808028 This award to the University of Arizona is to study the feasibility of establishing an Industry/University Cooperative Research Center for Water Quality. The proposed center will create new scientific knowledge on the physical, chemical, and microbial processes that affect the quality of surface and subsurface water, and transfer the knowledge to industry. The initial portfolio of research projects, and the structure and organization of the proposed center will be discussed at an industry/university workshop to be held at the end of the grant period.